ITR: Collaborative Research:Scalable Quality-of-Service Control for the Next Generation Internet: Fundamental Challenges and Effective Solutions

Today's Internet owes its great success to the simple, "hour-glass" IP network protocol architecture laid
out twenty-five years ago. With rapid advances in networking technologies and explosive growth of rich
multimedia content in recent years, the networking community finds itself at an important crossroads: what
should be the next generation Internet architecture for controlling network resources and provide the quality
of service (QoS) needed by emerging multimedia applications? There is a multidimensional spectrum of
possible approaches to providing QoS guarantees. The choice of a QoS solution for the next generation
Internet will have a substantial impact on both the evolution of the Internet itself, and on what it enables.
Making the "right" choices requires the development of a fundamental understanding of the scalability of
QoS controls and the impact of these controls on the efficacy of QoS provisioning.

The goal of the proposed research is to develop a comprehensive, quantitative understanding of the
fundamental trade-offs involved in various approaches toward providing scalable QoS guarantees. To this
end, the researchers will develop coherent theories to systematically address the issue of scalability in QoS controls. The research program divides broadly into four areas:

Aggregate network calculus for guaranteed flows: To gain a thorough understanding of the fine time-scale
(e.g., packet-level) behavior of a network system in providing QoS performance guarantees, the researchers
will develop an aggregate network calculus to study the impact of aggregate QoS control mechanisms
on the performance and complexity of data plane operations. This theory is developed for guaranteed
flows - flows which require the network to commit, either at a per-flow or an aggregate level, a
certain amount of resources (e.g., bandwidth and buffer) throughout their life time, regardless of the
network congestion status. The aggregate network calculus will provide a mathematical framework
to quantify the impact of aggregate QoS controls on the fundamental trade-offs in QoS provisioning.
It will also yield insights into the design of scalable data plane QoS control mechanisms.

End-to-end QoS controls for responsive flows: The researchers will develop fluid models to study the impact of aggregate QoS control mechanisms on the end-to-end performance of responsive flows. A responsive
flow responds to signs of network congestion, such as loss, by adapting its transmission rate. These
models will enable us to develop a better understanding of the behavior of responsive flows such as
TCP coupled with different aggregate QoS mechanisms and to design end-to-end QoS services for
responsive flows.

QoS control laws and control plane aggregation rules. The researchers will develop QoS control laws for capturing the slow time-scale, system-wide behavior of a network and aggregation rules that address the performance and complexity of control plane operations under aggregate QoS controls. These QoS control
laws and aggregation rules will lead us to the design of distributed and centralized algorithms for
scalable control plane operations.

Scalable QoS mechanisms and service architectures as an integral part in developing these theories, the researchers will also design effective and scalable QoS mechanisms, and tools and techniques for quantifying and evaluating the trade-offs of various QoS solutions. Based on the results from these efforts, the researchers will study how various QoS solutions can be combined to construct meaningful end-to-end services.

The research will blend formal modeling/analysis, experimentation/implementation, and evaluation. The
understanding and insights gained as a result of the research will lead to the establishment of the theory,
design principles, and guidelines for building scalable QoS controls for the future Internet. This, in turn,
will allow reasoned and informed choices to be made as the next generation Internet takes shape.